SBIR Phase I: An Indoor/Outdoor Robotic Air Vehicle for Emergency Response

This Small Business Innovation Research Phase I research project will develop underlying technologies that will enable Unmanned Air Vehicles (UAV) to navigate inside houses and buildings. This technology, applied to emergency response situations, will save the lives of police officers, victims, and suspects. Emergency response teams have been slow to adopt unmanned systems to aid in hostage situations, search and rescue, fire fighting, and armed standoffs. The impediment is the capabilities of the available unmanned system. Available ground robots are halted by rough terrain, large steps, and closed doors. Current UAVs can only be used outdoors. If UAVs could also take on indoor applications, they would surpass the capabilities of the ground robots as UAVs can traverse over any terrain, over any step, and enter and exit a building through any opening (including high windows). The technologies needed to enable for small UAVS to perform indoor missions are: indoor flight control and safety around people, which are the areas of the research proposed.

This project will prevent the loss of life in dangerous situations by reducing emergency response teams' exposure to lethal situations, by increasing the amount of situational information available to emergency response teams, by reducing the level of anxiety of besieged suspects, and by allowing remote inspection of places and things that are harmful to humans.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).